Family Engineering for Parents & Elementary-Aged Children

Michigan Technological University will collaborate with David Heil and Associates to implement the Family Engineering Program, working in conjunction with student chapters of engineering societies such as the American Society for Engineering Education (ASEE), the Society of Hispanic Professionals (SHP) and a host of youth and community organizations. The Family Engineering Program is designed to increase technological literacy by introducing children ages 5-12 and their parents/caregivers to the field of engineering using the principles of design. The project will reach socio-economically diverse audiences in the upper peninsula of Michigan including Native American, Hispanic, Asian, and African American families. The secondary audience includes university STEM majors, informal science educators, and STEM professionals that are trained to deliver the program to families. A well-researched five step engineering design process utilized in the school-based Engineering is Elementary curriculum will be incorporated into mini design challenges and activities based in a variety of fields such as agricultural, chemical, environmental, and biomedical engineering. Deliverables include the Family Engineering event model, Family Engineering Activity Guide, Family Engineering Nights, project website, and facilitator training workshops. The activity guide will be pilot tested, field tested, and disseminated for use in urban, suburban, and rural settings. Strategic impact will result from the development of content-rich engineering activities for families and the dissemination of a project model that incorporates the expertise of engineering and educational professionals at multiple levels of implementation. It is anticipated that 300 facilitators and 7,000-10,000 parents and children will be directly impacted by this effort, while facilitator training may result in more than 27,000 program participants.